Mathematical Sciences: Numerical Wavelet Methods for Combustion

The principal investigator will develop numerical wavelet methods for multidimensional combustion applications. The aim will be to determine the feasibility of using the advantages of wavelet methods--data compression, multiresolution analysis and orthogonality--to effectively address the numerical difficulties of combustion applications, including significant features on multiple scales, strong nonlinearity, and moving boundaries or internal layers. In particular, a preliminary study of the effectiveness of numerical wavelet methods for one dimensional deflagrations will be carried out as well as the design of numerical experiments to compare the effectiveness of wavelet methods to current discretization methods for significant multidimensionsal combustion applications. The necessity of limiting combustion caused environmental pollution and the transportation of combustible materials, for example, require an improved understanding of the combustion process. These new numerical techniques offer new promise for such improved understanding.